Calibration of the Geomagnetic Polarity Time Scale to Astrochronology via Benthic Foraminiferal Stable Isotope and Paleomagnetic Records From Southern Ocean Site 1090 (Leg 177)

The PI will use the funds to double the resolution (3-5 ky) of the Oligocene through early Miocene benthic foraminiferal stable isotopic record at the subantarctic ODP site 1090 that has yielded an excellent paleomagnetic record. This will allow direct calibration of the two sets of data and develop an astronomically tuned time scale for the interval. If successful, the site could become a type section for chronostratigraphy of this interval.